IKL Reasoning Engine

Interoperation between systems which use extensive formalized knowledge
is hampered by the wide variety of formalisms currently in use in such
systems. Attempts to create World-wide Web standards have already
yielded a collection of such formalisms, not all mutually compatible.
This situation results in part from a methodology which views deductive
efficiency of inference engines, rather than semantic clarity, as the
primary design criterion for new formalisms. Recent work (reviving an
older idea) has focussed instead on the design of a single,
highly expressive, logic into which a wide number of existing
formalisms can be straightforwardly mapped, essentially treating
them as subsets or simple ontologies (theories) within the
single common formalism. The resulting logic,
called the Interoperation Knowledge Language (IKL),
can express many representational strategies and the relationships
between them in a single formalism, in principle overcoming this
interoperation problem in many common cases. To realize this potential
in practice requires an inference engine to process IKL.

Although IKL is more expressive than first-order logic and so is
not decidable, many of the formalisms translated into it have very
tractable inference behavior. This project implements a new design
of a reasoner which is theoretically complete for IKL, while also having
the ability to recognize many of the known tractable subcases and
use efficient inference strategies on inputs which fit into these
known cases. The behavior of the engine is directed by scripts
which control its search behavior in a highly flexible multi-directional
search space combining hyper-resolution, rule-saturation and
tableaux reasoning. The engine is designed as an experimental
workbench rather than a production engine, with a focus on inventing
useful techniques for controlling its behavior, running large
experiment suites semi-automatically, and gathering information
relevant to the search process. We plan to make use of this engine
in a series of projects devoted to learning new inference strategies
from empirical ontological data.

Broader Impacts.

The code created by this project will be publicly available
under the GNU Lesser General Public Licence.

Details of the project can be found on the project web page at
http://homam.ihmc.us/silkie/Home.html